STTR Phase I: Enhanced Spectral Efficiency through Adaptive Utilization of Fragmented Spectrum

This Small Business Technology Transfer (STTR) Phase I project aims at addressing the challenging issue of spectrum scarcity for high throughput wireless communication systems by developing an innovative cognitive radio (CR) communication system capable of operating within a fragmented spectral band. Due to the proliferation of wireless communication systems, it is becoming ever more difficult to secure large contiguous bands of electromagnetic spectrum which are typically required by these products. To tackle this issue, innovative training and spreading waveform synthesis technologies, a state-of-the-art frequency domain channel estimation technique, and a frequency-domain equalization method will be developed and applied. These technologies will first be implemented in software, where their performance will be rigorously evaluated. Then, the techniques are to be migrated to a Universal Software Radio Platform (USRP) for hardware testing and evaluation. This disciplined approach of first developing and validating the software prior to hardware implementation will aid in ensuring that the project is successful. Upon successful completion of the project, the state-of-the-art in wireless communications will be advanced in fragmented spectrum exploitation, and the proposed system will have been successfully demonstrated in hardware.

The broader impact / commercial potential of this project is to dramatically improve the efficiency with which precious electromagnetic spectrum is utilized. Indeed, the approaches taken in the proposed project are capable of establishing and maintaining a reliable, high-throughput communication link in a fractured spectral environment. A major application for this technology is in a device operating within the recently established television white bands. This television white band application is a member of the wireless and mobile internet technology area. Products operating in these bands have been envisioned to serve a vital role in providing broadband access to customers living in rural areas. With over eighteen million Americans living in remote parts of the country with no access to high speed internet connectivity, technologies capable of establishing said connectivity are both socially beneficial, and commercially viable. Upon successful completion of the project, the cognitive radio technologies developed and implemented will fill a vital need in the television whitespace band application.